Representation Specification and Optimization of Object-Oriented Languages

Craig Chambers

Higher-level programming languages, such as Smalltalk, ML, and Java, can make
programming easier, more reliable, and more flexible than lower-level
programming languages, such as C and C++. Unfortunately, these software
engineering benefits often come at significant cost to run-time efficiency.
One
important obstacle to achieving good performance for higher-level languages is
the relatively inefficient approach to the representation and layout of data
structures, where data structures are represented uniformly as heap-allocated
structures referenced indirectly via pointers.

This research aims to reduce the performance costs of this high-level data
model
while retaining its software engineering benefits for programmers.
Declarative
techniques will be developed for specifying the layout of data structures and
for specifying optimizations to data structure layouts. Techniques will be
developed for deciding which layout optimizations to apply, based on a mix of
programmer suggestions, automatic static analyses, and dynamic profile
feedback. A flexible, language-independent compiler intermediate
representation
will be designed that explicitly maintains, checks, and optimizes
representations. The techniques will be implemented in an optimizing
compiler,
and their effectiveness measured on a range of large benchmark programs in a
variety of object-oriented programming languages.